Mechanisms of Ion-Molecule Reactions

This research, part of the Experimental Physical Chemistry Program, studies the dynamics and kinetics of ion molecule reactions of prototypical molecular species, including small polyatomic molecules, clusters, and metallic ions. The results of the experiments chosen for study often have practical utility in atmospheric, flame, and catalytic chemistry. Studies are to be performed in organometallic, state-to-state, and cluster chemistry. The techniques of Ion Cyclotron Resonance are used in these studies. A variety of lasers are used to prepare the gas phase reagents in well defined electronic, vibrational, and rotational states. In some experiments the nascent product kinetic energies of ions resulting from unimolecular fragmentations of molecular ions clustered to organic molecules will be studied.